Incorporation of Gas Chromatography/Mass Spectrometry into Chemistry Courses and Undergraduate Research

This project will incorporate into the chemistry curriculum at Spelman College principles and applications of gas chromatography/mass spectrometry (GC/MS). New experiments introduced into courses in organic chemistry and instrumental analysis will teach students current state- of-the-art methods of chemical measurement and analysis. In addition, the powerful analytic technique of GC/MS will greatly enhance the ongoing research efforts of undergraduate students. With the addition of GC/MS capability to its honors programs and research projects, Spelman College continues its significant contribution to science education of Black women undergraduates.